Predation Effects on Survival of Coral-Reef Fish Recruits

Coral reef fishes occur as local populations occupying patches of habitat. These populations comprise the basis of one of the most speciose assemblages of marine organisms, with hundreds of species coexisting locally. Our knowledge of the ecolgical processes that limit population size is scant and historically has been biased toward studies of competition, and more recently, recruitment (the process of young fish appearing on a reef following settlement of planktonic larvae). Due to a variety of logistic constraints, other processes have not been thoroughly studied. This is especially true of predation, which has been demonstrated to be an extremely important process in other marine, freshwater, and terrestrial communities. Dr. Hixon will investigate two corollaries of the hypothesis that predation limits local population sizes in reef-fishes: (1) survivorship of newly settled fish will be enhanced on reefs where resident and/or transient piscivorous fish are removed; and (2) these effects on survivorship will vary with the magnitude of recruitment. These will be tested by controlled experimental manipulations of predatory fish on isolated patch reefs at two sites: Lee Stocking Island in the Bahamas, and St. Thomas in the U. S. Virgin Islands.